Research Experiences for Undergraduates (REU) Site in Radio Science

Eight undergraduate students will be involved in the research activities of the radio astronomy group at Cornell University. The undergraduate students will work directly with members of the Cornell faculty and research staff on projects covering a range of disciplines in radio and radar astronomy. The students will conduct individual research projects and also participate in group activities such as seminars. At the end of the program the students will present papers detailing their research. Attempts will be made to encourage participation by students at small undergraduate institutions, by women and by minority students.